Structures of Non-Polar Molecules by High Resolution FT-IR Spectroscopy

In this RUI project in the Experimental Physical Chemistry Program of the Chemistry Division, Craig will use FTIR spectroscopy to obtain structures of several small, non-polar organic molecules. He will analyze the rotationally resolved IR spectra of the trans isomers and their isotopic species of several molecules which have higher electronic energies than their respective cis isomers. The structures will be compared with those of the cis isomers and will provide data for comparison with ab initio calculations. High resolution infrared spectra will be recorded on a spectrometer at the National Institute for Standards and Technology in the laboratory of Dr. Walter J. Lafferty. %%% There is a curious phenomenon called the "cis effect" in molecules with large substituent groups (which we will call X and Y) at either end of a rigid, planar carbon-carbon double-bonded skeleton, for example, HXC=CYH. In such molecules the isomeric structure in which the two large (X and Y) groups are on the same side (in the "cis" or near position) is energetically more stable than the structure in which the large groups are on opposite corners of the molecule (in the "trans" position). Intuitively, one would expect that the "cis" structure would be less stable energetically because the large groups can interfere with each other more readily. This current project will acquire data which will allow theoretical studies to be compared with experimental structures in order to test the validity of the theoretical models. It is expected that a successful theory will help explain this curious "cis effect" anomaly.